Mathematical Sciences: Decomposable Operators and Automatic Continuity

This project is mathematical research sponsored by a Research at Undergraduate Institutions award. The subject is linear operators on Banach spaces, the latter being (generally) infinite-dimensional versions of the finite-dimensional space in which we live. In general, it is easy for a linear operator to be discontinuous, that is, not to preserve limits; this is a feature of infinite dimensionality. It is therefore remarkable that under certain cirumstances, an operator that merely satisfies a particular algebraic identity turns out automatically to be continuous. The principal investigator will seek automatic continuity results of this nature within a framework described by the spectral theory of operators. His research will help him provide intellectual leadership to the mathematics department of his institution, Southwest Missouri State University, thereby improving the environment for undergraduate students seeking to learn mathematics.